Integrated study of source, path, and site effects on Kocaeli, Turkey, earthquake ground motions

The Kocaeli, Turkey, earthquake (M=7.4) of 17 August 1999 was particularly destructive because the fault ruptured in a densely developed urban area. This project is for an integrated study of the factors that controlled the nature of the ground motions: the earthquake source, wave propagation along the path, and near-surface modifications of these motions at the recording sites.

The ground motions may be analogous to motions from earthquakes of this magnitude on strike-slip faults in the United States; in particular for the San Francisco Bay area and the Greater Los Angeles region. One critical result of the study will be calibration of parameters of the composite source model for a strike-slip earthquake with slip comparable to an earthquake on the San Andreas fault.